Workshop for Autonomous Underwater Vehicles Technology Deve-lopment through Competitive Scenarios

The object of this workshop is the evaluation of underwater vehicle technology through the use of competitive scenarios. The workshop will bring together the experience and knowledge of autonomous underwater vehicle technology with the experience that has been gained through the International Submarine Race program to foster innovation and technology development through competition. The subject is sufficiently complex and has attracted a very large degree of interest so that a workshop of invited experts is the best method to advance the concept to practice. This approach will be employed to examine the process of utilizing competition to foster and evaluate technical advances and as a result to develop scenarios with which to characterize, evaluate and advance the state of the art of Autonomous Underwater Vehicles. The results of the workshop will provide the basis for competition based programs for technology enhancement and evaluation in the future.